Achieving Two Orders of Magnitude Reduction in Cellular Network Energy Inefficiency

The goal is to develop a set of algorithms to increase the energy
efficiency of cellular wireless networks. These networks were
originally designed without paying sufficient attention to their
efficiency, calculated to be less than 10%. With cellular traffic
increasing at exponential rates, the experts believe that in one
decade the traffic will be 1000 times today's traffic. In the proposed
research, a number of algorithms will be developed to improve energy
efficiency. Examples are new modulation techniques, new link adaptation
algorithms, or algorithms for the cellular network to adapt to
changing traffic conditions such that cells with small traffic use
only as much energy as needed, or cells shut down, their coverage to
be taken over by their neighboring base stations. We analyze the
contributions of a number of different techniques, and reach the
conclusion that it is possible to reduce the energy consumption in the
cellular network base stations to the 1.5-2% of its current levels.

The intellectual merit of this proposal is in redesigning the cellular
network and improving its energy efficiency by several orders of
magnitude. This will be achieved by a new set of tools, methods, and
algorithms employing a different set of tradeoffs such as deployment,
bandwidth, and possibly delay.

Broader Impact: Because the project relies on knowing a user's
location, the project will enable location-based services. These are
highly desired but cannot be implemented in today's networks. This
project will build on our existing research, prototyping efforts, and
an existing testbed.